Driven to Discover: Citizen Science Inspires Classroom Investigation

Driven to Discover: Citizen Science Inspires Classroom Investigation

Citizen science refers to partnerships between volunteers and scientists that answer real world questions. The target audiences in this project are middle and high school teachers and their students in a broad range of settings: two urban districts, an inner-ring suburb, and three rural districts. The project utilizes existing citizen science programs as springboards for professional development for teachers during an intensive summer workshop. The project curriculum helps teachers use student participation in citizen science to engage them in the full complement of science practices; from asking questions, to conducting independent research, to sharing findings. Through district professional learning communities (PLCs), teachers work with district and project staff to support and demonstrate project implementation. As students and their teachers engage in project activities, the project team is addressing two key research questions: 1) What is the nature of instructional practices that promote student engagement in the process of science?, and 2) How does this engagement influence student learning, with special attention to the benefits of engaging in research presentations in public, high profile venues? Key contributions of the project are stronger connections between a) ecology-based citizen science programs, STEM curriculum, and students' lives and b) science learning and disciplinary literacy in reading, writing and math.

Research design and analysis are focused on understanding how professional development that involves citizen science and independent investigations influences teachers' classroom practices and student learning. The research utilizes existing instruments to investigate teachers' classroom practices, and student engagement and cognitive activity: the Collaboratives for Excellence in Teacher Preparation and Classroom Observation Protocol, and Inquiring into Science Instruction Observation Protocol. These instruments are used in classroom observations of a stratified sample of classes whose students represent the diversity of the participating districts. Curriculum resources for each citizen science topic, cross-referenced to disciplinary content and practices of the NGSS, include 1) a bibliography (books, web links, relevant research articles); 2) lesson plans and student science journals addressing relevant science content and background on the project; and 3) short videos that help teachers introduce the projects and anchor a digital library to facilitate dissemination. Impacts beyond both the timeframe of the project and the approximately 160 teachers who will participate are supported by curriculum units that address NGSS life science topics, and wide dissemination of these materials in a variety of venues. The evaluation focuses on outcomes of and satisfaction with the summer workshop, classroom incorporation, PLCs, and student learning. It provides formative and summative findings based on qualitative and quantitative instruments, which, like those used for the research, have well-documented reliability and validity. These include the Science Teaching Efficacy Belief Instrument to assess teacher beliefs; the Reformed Teaching Observation Protocol to assess teacher practices; the Standards Assessment Inventory to assess PLC quality; and the Scientific Attitude Inventory to assess student attitudes towards science. Project deliverables include 1) curriculum resources that will support engagement in five existing citizen science projects that incorporate standards-based science content; 2) venues for student research presentations that can be duplicated in other settings; and 3) a compilation of teacher-adapted primary scientific research articles that will provide a model for promoting disciplinary literacy. The project engages 40 teachers per year and their students.